Dues to the International Scientific Committee on Solar-Terrestrial Research (SCOSTEP) of ICSU

PROPOSAL #: ATM-9912003

PI: Friday, Elbert W.

INSTITUTION: National Academy of Sciences

This award provides support for the payment of dues for US participation in the Scientific Committee on Solar Terrestrial Research (SCOSTEP), a scientific group of the International Council of Scientific Unions, to which the National Academy of Sciences adheres. SCOSTEP works within the ICSU framework to encourage cross-disciplinary conferences and to facilitate cross-project cooperation and multi-national research collaboration.